NSF Young Investigator: Transition Metal Complexes with Optically Active Pyrazolyl Ligands

Proposal: 9357171 PI: Tolman Professor Tolman, of the University of Minnesota, will investigate the transition metal coordination compounds with the assistance of an NSF Young Investigator Award from the Inorganic, Bioinorganic, and Organometallic Chemistry Program. His research program is focussed on two subjects, which are linked by their use of pyrazolyl ligands. One of the projects will use these ligands to prepare copper compounds that can interact with oxonitrogen compounds such as NO; the objective is to use simple coordination chemistry to enhance our understanding of the role of copper in enzymatic denitrification. The other project will use chiral versions of these ligands to bind metal ions in a chiral 3-fold environment; it is anticipated that such metal centers will be able to mediate stereoselective reactions in ways that differ significantly from the more usual chiral 2-fold metal centers. %%% The presence of metal ions in molecules can endow these molecules with unusual properties. A real-world example is found in certain bacterial enzymes, where copper ions lead to the conversion of nitrite to gases such as N2; this particular reaction is a major component of the global nitrogen cycle. The underlying chemistry of copper-nitrogen compounds is presently very poorly understood. With this grant, simple molecules containing copper and various nitrogenous components will be prepared, and their reactions will be studied. Another example of unusual metal ion behavior is the ability of molecules containing metal ions to have the property of chirality (i.e., handedness), and thereby to catalyze important reactions to give only one of a variety of possible products. This grant will enable studies of such systems where the chirality is based on a three-fold symmetry about the metal ion, rather than the more unusual two-fold symmetry. It is expected that this change of symmetry will lead to substantial differences in catalytic activity, poten tially of industrial benefit.